California HIgh School Cosmic ray ObServatory (CHICOS)

CHICOS (California HIgh school Cosmic ray ObServatory) is a
collaborative project involving Caltech, Cal State Northridge, and
local high school physics teachers to site an array of particle
detectors at high schools in the Los Angeles area. The array will
operate as a coordinated network and will be capable of detecting
and characterizing a sample of the highest energy elementary
particles ever observed. The project will offer students and
teachers in local high schools a unique opportunity to collaborate
with researchers at Caltech and address fundamental issues at the
forefront of present-day astrophysics and particle physics.